Creating Equal Opportunities In Science

This project will be implemented by an organization that has a ten-year history of preparing students from underrepresented minority groups for careers in science and engineering. Specifically, the proposer will work with the National Science Foundation to initiate eight new Venture school-based projects in Washington, DC. The Ventures (Macy) program in the selected DC public schools will comprise all core areas of the curriculum: English, mathematics, science, social studies, and foreign languages. Also included are the academic and non-academic aspects of a comprehensive educational program, including personal guidance and counseling services, formalized educational experiences that develop cognitive problem-solving and analytical skills, and activities that focus on enhancing independent study. Support will also be provided to continue faculty development activities at the original Macy-sponsored schools in Alabama and New York as well as the participating DC schools. In addition, evaluation studies will be continued for all the sponsored schools.